Acquisition of a State of the Art Electron Probe Microanalyzer

9810244 Piccoli This award provides 29% of the funding required for the acquisition of an electron microprobe microanalyzer system to be installed and operated at the Center for Microanalysis at the University of Maryland. The instrument will be used by research faculty, as well as graduate and undergraduate students to perform a variety of microanalytical tasks applied to research in geology, geochemistry, ore genesis, industrial and environmental mineralogy, materials science, ceramics, chemistry and solid state physics. ***